Research Experiences for Undergraduates SITE at Mechanical and Aerospace Engineering Department, Syracuse University

The Mechanical and Aerospace Engineering Department at Syracuse University plans to award research stipends to motivated and academically superior engineering undergraduates who have completed their junior year studies. The program has both the summer and academic year components. Each year, five of the eight REU participants are selected for summer research participation from applicants from colleges and universities other than Syracuse University. The remaining three students are selected for summer research participation from the seniors in Mechanical and Aerospace Engineering at Syracuse University. A particular focus of recruitment effort is to attract qualified participants from minority, women, and physically disabled students, both from within and without Syracuse. Six faculty members in the Mechanical and Aerospace Engineering Department have expressed active interest in supervising the research efforts of the participants. The areas in which these faculty members are actively engaged in research span experimental and computational fluid mechanics, gasdynamics, aerodynamics, heat transfer, aeroacoustics, noise control, composite materials, and mechanical behavior of fibrous materials. A REU participant may select a research problem in any one of these research areas. For faculty supervision, research participant's choice of a research project and faculty supervisor's field of specialization will be matched.